EXP-LA: Development of Sensing Materials and Signal Processing Methods for an Electronic Nose

This is a project to develop sensor arrays for vapor detection using chemically sensitive resistors and luminescent polymers together with biologically inspired algorithms to analyze and interpret the data. The development of a low power circuitry to decode odor patterns from the sensors is a significant component with important technological implications. The work can lead to a general purpose, trainable sensor.